Engineering Research Equipment Grant: High Speed Cameras for Dynamic Moire Interferometry

Funds are provided for the purchase of high speed cameras for use in Dynamic Moire Interferometry experiments on the initiation and fast propagation of cracks. Experiments of this type are heavily dependent on the ability to record optical events with short exposure times and on the ability to store and analyze images. The project funds two recently introduced Xybion cameras.